Mechanisms of Photochemical Reactions

With funding from the Organic Dynamics Program, Professor Saltiel at Florida State University is investigating the photochemistry and photophysics of conjugate olefins. Through the use of experiments and the principal component analysis-self modeling methodology, he is gaining insight into the consequences of single bond rotamers and double bond isomerizations on the photochemical behavior of complex olefins. Application of these ideas to Vitamin D formation and the Bacteriorhodopsin photocycle is the focus of this investigation. Results of previous investigations on polyolefin photochemistry are being applied to the photochemistry and photophysics of biologically significant chemical systems. This includes the study of Vitamin D formation and Bacteriorhodopsin photocycle. The latter deals with an exploration of vision chemistry.